Modeling the Tropical Climate State and Its Interannual Variability with Coupled Ocean-Atmosphere-Land Models

Abstract ATM-9615952 Jin, Fei-fei University of Hawaii Title: Modeling the Tropical Climate State and its Interannual Variability with Coupled Ocean-Atmosphere-Land Models This project is a continuation of NSF supported research which investigates annual and interannual tropical ocean-atmosphere interactions. The PI intends to study the tropical climate state, its annual cycle, and interannual variability as well as their interactions using a conceptual model to outline principal mechanisms. An Intermediate Coupled Model (ICM) will be used as a main tool for detailed bifurcation study and numerical simulation to understand the roles of the principal physical processes highlighted by the simple conceptual model and the ICM. This study will advance our understanding of the nature of the tropical climate state and its annual and interannual variability observed in tropical ocean-atmosphere system and simulated by coupled models.